Nd Isotope Investigation of North Atlantic Deep Water Production over the past 50,000 Years and Education in Geology

This CAREER award will support research to develop the use of Nd isotopes in fossil fish teeth and apply this tool as a paleo- watermass tracer of North Atlantic Deep Water and variations in Mediterranean weathering during the last glacial/interglacial cycle. Two graduate students will be involved in the research. Educational activities include helping to develop a curriculum in Earth Systems Science which will feature WWW sites with course notes and lab exercises.